Doctoral Dissertation Research in Political Science: Counterinsurgent Militias and the Dynamics of Civil Wars

Counterinsurgent militias--third actors in civil wars other than state or rebel armies--have played a strong part in many civil wars, including in Mozambique (1976-1992) and Sierra Leone (1991-2002). Counterinsurgent militias have been among the main perpetrators of violence against civilians. Yet we lack systematic understanding of how militias emerge and evolve as civil war unfolds. This project introduces a new definition and typology of counterinsurgent militias and uses an analytic framework emphasizing the social interactions between militias, rebel groups, state forces, and civilians to study militia emergence, organizational form and evolution. The research proposes that militia emergence is influenced by the type of security threat that exists and the presence or absence of the state in threatened communities. Militia organization is shaped by the breadth of its social base and the degree of its autonomy from political elites on the national level. The project seeks to explain change in the organizational form of a militia over time with reference to its success to pacify territories.

The research builds on ethnographic and archival data that will be collected during twelve months of fieldwork in Mozambique and Sierra Leone to further elaborate the initial theory and test it against alternative explanations. The research design includes cross-national, sub-national and within-case comparisons of counterinsurgent militias in the civil wars in Mozambique between the government Frente de Libertação de Moçambique, Frelimo, and the rebel army Resistência Nacional Moçambicana, Renamo, and in Sierra Leone between the government and the Revolutionary United Front (RUF).

The project enhances scientific understanding in three ways. First, the study of civil wars has been overly state-centric due to the classic image of civil wars as driven by insurgencies seeking to capture state power. This project examines a decisive actor neglected in previous comparative research on civil war. Second, many studies work with a static conception of armed groups in civil war and lack an understanding of organizational change. By focusing on counterinsurgent militias, actors whose organizational forms vary considerably in the course of a civil war, this project can theorize organizational change of armed groups. Third, this project has implications for understanding the dynamics of civil war on the micro level such as the membership base, patterns of violence, and level of territorial control of different armed organizations. It also affects our understanding of the dynamics on the macro level?the duration and outcome of civil wars. For instance, militias can increase or decrease the level of violence, depending on whether they succeed against rebel groups or attract retaliation. Also, they may lengthen civil wars by increasing the number of actors with a stake in the conflict.

In addition, this research makes several broader contributions. Enhancing our understanding of the phenomenon of counterinsurgent militias can help prevent, manage, and resolve violent conflict and promote stability and development when civil wars come to an end. A better understanding of why and when some militias turn to violence against civilians can inform policies for peacekeeping forces and mediators in civil wars. A better understanding of the conditions of the impact of militias on security after the end civil wars can guide the search for workable peace agreements and comprehensive demobilization efforts. The project will include workshops with researchers and policy analysts in Mozambique, Sierra Leone, and the US to enhance knowledge about militias and to inform policies for conflict management and resolution.